Computer Vision and Astronomy: A New Technique for Exoplanet Discovery

This award will support the development of innovative image analysis algorithms for the direct detection of faint exoplanets in the presence of scattered starlight from the host star. The research team will try a new interdisciplinary approach, using ideas from computer vision experiments, with the goal of reducing systematic errors resulting from incomplete modeling of background and scattered light.

The work is expected to result in the creation of a flexible pipeline for the analysis of exoplanets and other objects. Codes from this project to the public will be released under open-source licenses.